Simple and Efficient Geometric Algorithms and Their Applications

Motivated by problems in several applied areas, such as computer graphics, robotics, computer vision, computer aided design, image processing, and geographic information systems, computational geometry emerged as a discipline about twenty years ago. Numerous efficient geometric algorithms and sophisticated algorithmic paradigms have been developed, and computational geometry is by now a rich and mature discipline. The link between computational geometry and application areas is, however, still not as strong as one would have hoped for. The purpose of this project is to narrow the gap between geometry and the related applied areas. The project will address the issues beyond the traditional framework of algorithmic design, and simple algorithms will be developed and implemented that work well in practice. Geometric problems motivated by various application areas, including visualization, robotics, data mining, and metrology will be studied. The algorithms will be developed and analyzed in a more realistic model of computation and will be implemented and tested on ``real'' inputs.